Spring Topology and Dynamical Systems Conference 2003

DMS-0231521
Ira Wayne Lewis

The Department of Mathematics and Statistics of Texas Tech
University will host the Spring Topology and Dynamical Systems
Conference 2003. This conference will feature over 20 invited
speakers and will have special sessions in each of the areas of
Continuum Theory, Dynamical Systems, General Topology, Geometric
Group Theory, Geometric Topology and Topological Algebras, as
well as providing opportunities for contributed talks. This
conference will build on a heritage of such conferences held
each year since 1967.

This conference will provide a forum for an international group
of up to 200 researchers to present and discuss the latest research
results and open questions. Topics covered will range over a
broad spectrum but all have a common link to the core of topology.
Among topics to be discussed by invited speakers are virtual
knot theory, fixed points and periodicity, bottlenecks in
dendroids, indecomposable Banach spaces and applications of
topology. The invited speakers have been nominated by a steering
committee of leading researchers in the areas. Graduate student
participation will also be strongly encouraged and supported.